Earthquake Stability Problems in Eastern North America

It is generally agreed that there is a better than 50% chance that a very severe earthquake will strike somewhere in the United States within the next thirty years. The vulnerability of the eastern portion of North America is of particular concern. Since very few structures in the East have been designed for earthquakes, and there are more tall buildings in the East than in the West, the subject is very urgent. This project by the Structural Stability Research Council is to examine earthquake stability problems in Eastern North America through the holding of a Technical Session in Pittsburgh 7-8 April 1992, the dissemination of findings through a set of Proceedings to the public research domain, and through eventual recommendations for research studies and design approaches. The Technical Session will include the presentation of reports on current stability-related research projects. A special feature will be the Theme Session and Panel Discussion which will address the topic of "Earthquake Stability Problems in Eastern North America." During the Theme Session, invited researchers will present the results of their recent investigations. The Panel Discussion involves a group of engineers who will discuss issues related to consideration of earthquake stability problems in design practice. State-of-the-art design specifications and issues not specifically addressed by design specifications will be discussed. The technical program will focus on the topics of P-delta effect, dynamic effects, connections, shells and tubes, plate structures and electrical transmission. The completion of this project shall constitute a significant step toward the identification and resolution of Eastern North America earthquake stability problems.